Engineering Research Equipment: Dynamic Spectroellipsometer for Reaction and Adsorption Measurements

CTS-9311159 Purdue University Hilary H. Lackritz ABSTRACT The spectroellipsometer to be acquired with this equipment award will be used for the investigation of local microstructure and optical properties of polymeric films in conjunction with other spectroscopic methods. Different techniques for the preparation of the films (Langmuir-Blodgett deposition, spin-coating, and dip-coating) will be compared on the basis of film characteristics. Thin polymer films and their optical properties are important to the economic competitiveness of the Nation in production of new generations of computers and audiovisual equipment. wa F H ! ! ! F ~ ~ ( Times New Roman Symbol & Arial Apple LaserWriter II NT LPT3: pscript Apple LaserWriter II NT U D o d , X Z e " h C C 1 Nichelle Coward Nichelle Coward